Attentional Effects in the Translation of Print to Sound

Skilled reading requires the acquisition of several subskills, ranging from recognition of individual words to combination of words and sentences into the overall meaning of a text. This research will investigate the processes by which a skilled reader can determine the sound of a word. One possible process is that readers first identify the word's letters and then use their knowledge of spelling-to-sound rules to determine its pronunciation. However, there is another way to determine a word's pronunciation. Instead of using spelling-to-sound rules, a reader can simply use the letters to look up the word in his mental dictionary. When a word is located in the mental dictionary, information about its meaning and pronunciation can be retrieved. Spelling-to-sound rules can enable a reader to pronounce unknown words. Thus, most readers would pronounce BIM to rhyme with "him". Beginning readers would find this very useful since there are many words they have not learned to read, but that are part of their aural vocabulary. On the other hand, fast and fluent reading may require that readers be able to go directly from the identification of the letters to their mental dictionary. Also, only the dictionary route can lead to the correct pronunciation and identification of some words. For example, if the rules are followed, then the letters PINT would be pronounced to rhyme with "hint", "mint", and "lint". Despite the fact that two routes from print to sound would appear to be useful, the existence of two functionally independent and anatomically separate routes remains controversial. Single-route models consistent with existing experimental data have been proposed in recent years. One view is that skilled readers always rely on the rules to translate print to sound, whereas another view is that skilled readers only use the dictionary route. This research, which will involve both experimentation and computer simulation, is aimed at testing the dual-route hypothesis that both processes are used by skilled readers of English. The results of this project could provide insights into better methods for teaching beginning reading, for teaching English as a second language, and for understanding some forms of dyslexia.